FASEB Summer Research Conference: Signal Transduction in Plants

9301372 Lamb This grant will support a new FASEB Summer Research Conference on Signal Transduction in Plants to be held at Copper Mountain, Colorado, August 1-6, 1993. The contributed talks and discussion sessions will highlight recent progress in signal transduction mechanisms in plants, and will bring together scientists approaching this key topic from genetic, molecular, biochemical and cellular physiology approaches. Specific sessions include: (1) Perception and transduction of light signals, (2,3) Stress signaling (two sessions), (4) Hormonal signaling, (5) Pattern signaling, (6) Cell:cell communication, (7) Protein kinase systems, (8) Signaling the cell cycle, (9) Novel signal systems and experimental approaches. The conference will be attended by 150 scientists chosen to represent a cross-section of those interested in the subject. The focus on signal transduction in plants in the context of a FASEB Summer Research conference format will provide a unique forum for sustained, focused, in-depth discussions of emerging topics that are critical to our understanding of the underlying mechanisms controlling plant growth, development and environmental responses. This conference will bring together scientists approaching plant signal transduction from different, complementary, conceptual and technical approaches and hence generate an interdisciplinary synthesis in this fast moving topic. It is anticipated that this conference will be the first in a biennial series focusing on Signal Transduction in plants, alternating with the established Plant Genetics/Gene Expression FASEB Conference. %%% This conference will focus on signal transduction in plants. The FASEB Summer Research Conference format will provide a unique forum for sustained, focused, in-depth discussions of emerging topics that are critical to our understanding of the underlying mechanisms controlling plant growth, development and environmental responses. ***